Interfacial Dynamics in Multi-phase Transitions

The investigator studies mathematical models for interfacial
phenomena. The objective is to provide a systematic study for
multi-phase transitions based on both existing and newly developed
models. These are macroscopic free boundary models, based on
observable quantities and needed to deal with singularities due to
topological changes of free boundaries, and microscopic continuum
models, derived at the molecular level and (always) well-posed.
One goal of the project is to derive critical information from
continuum models for free boundary models when the latter become
indeterminate. Another is to develop new microscopic continuum
models for phase transitions among phases such as solid/liquid and
different grains in polycrystals. The project is aimed at the
fusion of mathematics and material science and new developments
for systems of differential equations. The main tools used here
are theories of partial differential equations, singular
perturbations, asymptotic expansions, complex analysis,
bifurcation, center manifolds, global analysis, dynamical systems,
and geometric measure. Computational simulations are used to
stimulate, validate, and further extend theoretical conclusions.

The interfacial phenomena studied in this project are
commonplace in nature. They occur whenever there is a continuum
that can exist in at least two different phases and there is some
mechanism that generates a spatial separation of these phases.
The spatial boundaries that separate these phases, referred to as
interfaces or free boundaries, evolve with time due to some
mechanisms of transitions between phases. A typical two-phase
transition is a solidification process of a liquid. A classical
multi-phase transition arises from evolutions of grains in a
polycrystal where alignments of atoms in different grains do not
match at grain boundaries. The growth of a solid polycrystal from
a liquid involves a two-phase transition between liquid and solid
and a multi-phase transition among grains. The use of microscopic
continuum models to study phase transitions has undergone a strong
development in recent years, but major advances have been made
mostly in the case of two-phase transitions. This project focuses
on multi-phase transitions. These problems motivate new
theoretical development in free boundary problems, systems of
parabolic/elliptic partial/ordinary differential equations, and
dynamical systems. Part of the project, involving the Riemann
mapping theorem, is integrated into a graduate/undergraduate
course on complex analysis to provide students with a real-life
application of mathematical theory in material science. In
addition, graduate students are involved in the project. New
models developed here provide scientists with tools in
understanding and designing new materials.